Undergraduate Photonics Laboratory

An undergraduate Photonics Laboratory is being developed to support laboratories in five senior level electives in the Department of Electrical Engineering: Fiber Optics, Design in Electromagnetics and Optics, Fourier Optics, Laser Electronics and Optical Sensors. This new undergraduate laboratory in optics and photonics also will be used to develop experiments to be used in required courses in electromagnetics and devices and circuits.